Collaborative Research: The Development of Content and Pedagogical Content Knowledge of Proportional Reasoning Through Online Professional Development

Content-focused professional development (PD) programs are essential for equipping teachers with the content-specific expertise that is necessary. While there have been substantive investments in PD across the United States, little is known about the actual process of how teachers acquire this knowledge through PD engagement. Similarly, it is uncertain why some PD programs are more effective than others. Most research has focused on what teachers learn by completing these program, rather than how they learn during the PD program. This project will address a critical gap by advancing understanding of how teachers learn within online content-focused PD. This project will identify the specific program features that best support teachers' knowledge growth. Ultimately, these insights will inform the design of more effective, scalable PD, and lead to enhanced classroom instruction.

This project will develop a data-driven framework investigating how teachers acquire two key components of content-specific expertise (content knowledge and pedagogical content knowledge) as they engage with an interactive online PD system. To capture the nuances of the learning process, the project will utilize advanced machine learning and psychometric methods to analyze real-time interaction data collected from hundreds of participating teachers who complete the online PD. This methodological approach allows for the investigation of how specific knowledge components evolve, how they relate to one another, and how particular system features — such as analyzing videos of mathematics instruction — influence learning trajectories. By applying these sophisticated approaches to real-time data, the project will model how teachers’ knowledge changes during the program and in turn, identify the role of specific instructional characteristics, including content emphasis and enactment methods. The potential contributions include a foundational framework for teacher learning processes and empirical guidelines for designing online PD programs.

This project is co-funded by the Innovative Technology Experiences for Students and Teachers (ITEST) program, which supports projects that build understandings of practices, program elements, contexts and processes contributing to increasing students' knowledge and interest in science, technology, engineering, and mathematics (STEM) and information and communication technology (ICT) careers.